Development of a Strain Gauge Bonding Process Using a Hydroxyapatite Coating

This is an SGER proposal to develop and evaluate a new method of bonding strain gauges to bone; current methods of bonding do not last for a sufficiently long time to allow an engineering analysis of bone healing. The proposed approach is to coat the transducer with synthetic hydroxyapatite (closely related to compounds found in natural bone) to facilitate the development of a strong bond. Very preliminary experiments have been promising, and the purpose of this proposal is to optimize and evaluate this technique using in-vivo preparations. Reliable transducers will contribute significantly to basic engineering studies into the mechanisms of bone healing.